Group Travel to Fifth Marcel Grossmann Meeting; Perth, Australia; August 8-12, 1988 (Physics)

This award will provide funding for about 15 U.S. scientists to attend the Fifth Marcel Grossman Meeting in Perth, Western Australia, (Aug 8.12, 1988). This meeting will review recent advances in theoretical and experimental gravitation. Discussion topics will include mathematical techniques, cosmology, quantum gravitation, astrophysics, gravitational radiation, and experimental developments.